Summer Science Camp at Alabama A&M University

The Summer Science Camps at Alabama A & M University provide African-American students entering grades 7-9 with innovative activities designed to provide: 1) a foundation for influencing their interest in science and mathematics; 2) positive attitudes toward staying in school and continuing the study of science and mathematics; 3) and encouragement to consider science, engineering and mathematics disciplines as possible career choices. The SSC activities include a combination of enrichment instruction and laboratory experiences in science and mathematics, problem solving experiences, experiences in developing strong study and communications skills, exposure to research methodology,experiences designed to improve self-esteem and motivation, and career exploration emphasizing student interactions with scientists, engineers and mathematicians.